Scientific Computing Research Environments for the Mathematical Sciences (SCREMS) / Mathematical Methods in Imaging

RE: DMS-9872023

The Department of Mathematics at the University of Florida will purchase
computer equipment which will be dedicated to the support of research in
the mathematical sciences. The equipment will be used to support research
on:
1) partial differential equations based methods of de-noising, segmenting,
registration, and deformation of images;
2) reconstructing positron emission tomography images by new analytic and
statistical methods; and
3) automatic detection of land mines from remotely sensed data by using
spatial scan statistics.
These projects all involve the analysis of large data sets, extensive
numerical calculations, and the manipulation and visualization of both
two and three dimensional images.
The equipment consists of PCs with large memory (RAM) for the calculations,
large monitors for visualization, and graphics accelerator cards to handle
the large images that are involved.